University Industry Demonstration Partnership

The University-Industry Demonstration Partnership (UIDP) is being conducted under the auspices of the Government-University-Industry Research Roundtable (GUIRR), which is part of the National Academy. The objective of the UIDP is to nourish, expand, and facilitate collaborative partnerships between universities and US industry by bringing together a coalition of willing partners who will engage in collaborative experiments on new approaches to sponsored research, licensing arrangements, and the broader strategic elements of a healthy, long-term university-industry relationship.

If successful, the UIDP will conceive, design, pilot, and disseminate new mechanisms for university-industry collaboration.